Engineering Research Equipment Grant: Scanning Acoustic Microscope (SAM)

Scanning Acoustic Microscopy (SAM) provides the capability to obtain information in a nondestructive mode on the elastic properties of materials at a resolution comparable to that of high magnification optical microscopy. SAM also permits such studies in materials opaque to light, thus allowing studies of sub-surface as well as surface properties. Structure-property measurements at high resolution are important in attempting to understand the distribution of local inhomogeneities, both surface and sub-surface, on bone properties. SAM is also important to improve the understanding of the effects of implants at bone-implant interfaces. Finite element analyses (FEA) are being used by many people in their attempts to design new implant prostheses, and data obtained by SAM are expected to dramatically improve such design calculations.